Support for Organizing the 1999 International Symposium on Multiparticle Dynamics, to be held at Brown University, August 9-13, 1999

9901245
Tan
Professor is seeking funding to operate the "1999 International Multiparticle Dynamics" Conference on the campus of Brown University. This Conference covers topics of particle interactions that are of interest to
EPP, Nuclear, and Particle and Nuclear Astrophysics. It also worthy of note that funding sought goes toward supporting fledgling physicists.